Maser Emission from Accretion Disks and Dense Circumnuclear Gas in Active Galactic Nuclei

Maser emission from accretion disks and dense circumnuclear gas in AGN

Philip R. Maloney

Powerful extragalactic sources of water maser emission - the water megamasers - are exclusively associated with galaxies showing evidence for an active galactic nucleus. Recent work has shown that production of water maser emission via irradiation of dense circumnuclear gas by the x-rays from an active galactic nucleus can explain the observed water maser emission. Dr. Maloney is extending earlier work on the production of water maser emission from accretion disks. In addition, Dr. Maloney is constructing models that take into account the full vertical and radial structure of the disk, the influence of velocity gradients, dust absorption, free-free absorption on the observable maser emission, and the actual irradiation geometry of an obliquely illuminated disk.